Fourth International Hadron Spectroscopy Conference and Summer Course in Hadron Spectroscopy; College Park, Maryland; August 5-16, 1991

This proposal is for partial support for a conference in hadron spectroscopy and a one week school in the subject, aimed at graduate students and postdoctoral associates, to be held the week immediately before the conference. The proposed venue for both events is the University of Maryland at College Park. The conference is fourth in a biennial series that began at the University of Maryland in 1985, and was supported by NSF in that year. It has since circulated through KEK in Japan in 1987, Ajjacio (Corsica) in 1989 and is now proposed for Maryland in 1991. Broadly interpreted, in the sense of including both light and heavy quark hadron states, the subject is of direct interest to all experimental and most theoretical physicists. The focus of the proposed conference is likely to be somewhat more on the light quark states where interest is still quite widespread. At the present time, it appears that at least one hundred persons have expressed an interest in attending the conference. The school is also likely to be well attended at the level proposed of about 20 students.